RUI:Carbonate Platform and Reef Development in the AlexanderTerrane of Southeastern AK

Early to Late Silurian limestones from the Heceta Formation record the earliest occurrence of widespread carbonate deposition in the region and represent the earliest foundation for shallow water platform development within the arc. The excellent preservation of shallow to deep subtidal deposits within the Alexander arc contrasts with the poor preservation of many marine sediments that originated within other island arcs. Hence, these limestones provide important insights into the styles, processes and bathymetry of carbonate deposition in tectonically active areas. Although previously described as having a shallow marine origin, the limestones from the Heceta Formation can be differentiated into shallow water platform, platform margin, and slope facies. Renewal support will enable PI to pursue topics that relate to: (1) the dynamics of reef sedimentation and carbonate platform development within the Alexander arc; (2) physical and biologic controls on stromatolite distribution within the arc; and (3) regional biogeographic correlations. The proposed research will involve field work and laboratory analyses during a two-year period and will generate a model for carbonate platform and reef evolution within a tectonic framework. Results of the proposed research will refine our understanding of Silurian reef evolution and decline in different tectonic settings, factors affecting Phanerozoic stromatolite development, and the paleogeography of the Alexander terrane.